Support of the Cornell Electron Storage Ring (CESR) Facility

9809799
Berkelman
This grant to run the CESR facility and to perform high energy physics research with the CLEO detector will support studies of the b quark, one of the six types of quark known to exist. The b quark is the heaviest quark which is stable under strong interactions. Only the top quark is heavier. This fact allows many studies to be made of its properties. An understanding of the quark couplings and of the couplings between different types of quark is basic to an understanding of the particles and forces of nature. The ultimate goal of this experimental program is to understand how basic symmetries, e.g. CP, are violated in nature, which leads, for example, to the mechanism by which the Universe becomes composed largely of matter and not anti-matter.